Physics Resources and Instructional Strategies and Content Workshops

This proposal describes two three-week workshops for 30 teachers each to be held during the summer of 1986. Teachers from Iowa and throughout the upper midwest who are minimally prepared to teach high school physics, but who are scheduled to do so, will be selected. The workshops will provide teachers with content background in physics as well as training in teaching strategies. Resource and instructional strategies materials created and field tested by the Iowa Physics Task Force for high school physics teachers will be used. Master teachers from Iowa will assist in the workshops, aiding participants with subject matter as well as classroom techniques. A very interesting set of follow-up activities should insure the implementation of an improved teaching/learning environment in the physics classes of these teachers. Conference calls on a regular basis will maintain a close relationship among the participants and the project staff. Videotaping of physics lessons will be carried out every nine weeks by participants. These tapes will be critiqued by project staff and returned with comments and suggestions. On-site visits will be conducted by project staff to personally observe the classes.